An eXtensible Open Router Platform (XORP)

Much good Internet research is being frustrated by an inability to
deploy experimental router software at points in the network where it
makes most sense. This problem affects a wide range of research,
including routing protocols themselves, active queue management
schemes, and so-called "middlebox" functionality such as intrusion
detection systems. Research becomes unrealistic because of the
difficulty of experimenting under real network conditions; often ideas
never make it out of the network simulator.

To address these problems, the XORP project will develop a complete
open-source router software platform, from forwarding path to routing
protocols, using an architecture that permits extensibility whilst at
the same time providing stable well-performing basic router
functionality. The vision is of an integrated router software
platform running on off-the-shelf hardware, that is sufficiently well
performing and reliable to see production service in a wide range of
network conditions. The software architecture will be designed with
extensibility in mind from the start. The goal is for Internet
researchers needing access to router software to have a common
platform for experimentation; this will provide all the basic router
functionality that the researcher can then use to perform measurements
or augment with new protocol functionality.